Reinforcement Learning Algorithms Based on Dynamic Programming

This project will investigate aspects of a class of reinforcement learning algorithms based on dynamic programming (DP). Although these algorithms have been widely studied and have been experimented with in many applications, their theory is not developed enough to permit a clear understanding of the classes of problems for which they may be the methods of choice, or to guide their application. Research at the University of Massachusetts has made considerable recent progress in relating these methods to the most closely related conventional methods and in understanding the factors that influence their performance, both successful and unsuccessful. These methods may provide the only computationally feasible approaches to very large and analytically intractable sequential decision problems. The objectives of this project are: 1) to continue development of DP-based reinforcement learning methods an their theory, 2) to investigate their computational complexity, and 3) to define the characteristics of problems for which they are best suited.